Equipment: MRI: Track 1 Acquisition of Lattice Light Sheet Microscope to Study 3D Structures and Dynamics in Soft Matter and Biology

This Major Research Instrumentation award supports the acquisition of a Lattice Light Sheet Microscope at the University of Massachusetts Amherst. Many important materials and living systems change shape, move, interact, and respond to their environment in three dimensions, often on fast timescales. Existing microscope technologies often cannot capture these processes with the needed combination of speed, resolution, imaging depth, and gentle illumination. The new instrument will give a broad community of researchers the ability to observe fast three-dimensional events in soft materials and living samples that are currently difficult or impossible to measure. The resulting research will advance fundamental understanding of active matter, responsive materials, cell and tissue mechanics, reproduction, and plant development. These advances serve the national interest by expanding scientific infrastructure for discovery in current NSF priority areas, including Biotechnology and Advanced Materials and Manufacturing, by strengthening a regional research and training resource, and by preparing students to use state-of-the-art imaging technology. The instrument will be operated through an established shared Light Microscopy Facility to support users from UMass Amherst and nearby institutions. Educational and broader-impact activities will include new course modules, seminars, workshops, summer-school demonstrations, undergraduate research experiences, and outreach to K–12 students, thereby making advanced STEM education open and available to all Americans.

The project will acquire a Zeiss Lattice Lightsheet 7 microscope for shared use by an interdisciplinary research community of more than 100 users from more than 20 research groups across 15 departments and five institutions in and around the University of Massachusetts Amherst. Lattice light sheet microscopy illuminates only the plane being imaged with gentle light, reducing light exposure while enabling rapid volumetric imaging with near-isotropic resolution. The instrument will be used to advance a variety of research topics in life sciences, by quantifying intercellular force dynamics during morphogenesis in three-dimensional organoid models, revealing signaling pathways in sperm and eggs, and deciphering pollen tube growth dynamics and intercellular interactions over extended timescales in vivo. The project will also enable pioneering applications of lattice light sheet microscopy in materials science, including efforts to quantify three-dimensional active-matter motion in confined geometries, image non-equilibrium deformation of lipid membranes, measure the dynamics of photo-responsive vesicles and ultrathin elastic sheets, determine how curvature and elasticity guide colloidal assembly and two-dimensional crystal growth. It will also support novel studies in a wide range of interdisciplinary projects involving biofilms, cytoskeletal dynamics, brain tissue, active fluids, and soft interfaces. The microscope’s short exposure time, fast volume-scanning capability, low photobleaching and phototoxicity, long working distance, multichannel imaging, environmental control, and compatibility with standard samples will enable long-term, high-resolution measurements in living and soft material systems. By making this capability accessible through a professionally managed shared facility, the project will catalyze collaborations across materials science, biotechnology, and life sciences, generate preliminary data for new externally funded research, and establish a durable platform for training the next generation of scientists and engineers in quantitative three-dimensional imaging.